Connection to NSFnet

The University of Cincinnati has several researchers who would benefit from access to supercomputers and access to other researchers connected to the NSFNET. These scientists constitute a growing number of faculty and graduate students who require advanced computing facilities in order to carry out their research. The campus requests a portion of the funds needed for equipment for connection to the NSFNET through the State of Ohio communication network centered at Ohio State University. Consistent with the NSFNET Program policy regarding connection to existing mid-level networks, this grant is an award of $20,000 for routing equipment at the campus, which will be used as a gateway to networks external to the campus. Connections to the Ohio State University hub will be provided by the University of Cincinnati. Ohio State University is connected to the NSFNET Backbone network as member of the the CICNET regional (multicampus) network and as such has computer communication capability with all institutions currently connected to the nation research network, NSFNET.